Peptide Synthesizer for Structure-Function and Molecular Biology Research

Support is requested for purchase of a peptide synthesizer, to serve a group of investigators in projects of protein structure- function research and molecular biology. This is a revision of proposal DIR-8820671, submitted from the Wadsworth Center for Laboratories and Research (WCLR), the New York State Department of Health. The proposal requests funds for the purchase of an Applied Biosystems peptide synthesizer. All three reviewers agreed that the need for the synthesizer was well justified, and that the major user investigators, as well as the WCLR would benefit greatly by having an on-site peptide synthesis facility. The reviewers raised questions in three specific areas and this revision responds to these questions. The three areas which are addressed in this revision are 1) the organizational plan of operation, 2) costs of synthesis, 3) purification of peptides and number of peptides needed.